RUI: Non-Cylindrical Fold-Nappes in the Western Gneiss Region, Norway

In the eastern portion of the Western Gneiss region of the central Norwegian Caledonides a sequence of cover and structurally higher units have been intricately infolded with basement gneisses. The regional interference patterns have previously been explained as the combined result of gneiss dome and basin formation, recumbent folding and late cross-folding. Recent mapping however shows that the patterns can be reinterpreted as a refolded sequence of three highly noncylindrical recumbent nappes with a sheath-like form. This project will test the possibility that very large sheath folds, on the order of 30 kilometers in wavelength, occur in this orogen. Results are applicable to other deep-seated orogens where large crystalline thrust sheets have moved long distances.